The MARGINS Office 1997-1999

The MARGINS initiative seeks to understand the complex interplay of processes that govern continental margin evolution globally, particularly targeting multidisciplinary research programs involving field experiments, numerical simulations, and laboratory analyses. Support is provided for a coordinating office at the University of Hawaii for the MARGINS initiative over the next two years to provide the planning, organization, and communication necessary to further develop MARGINS research efforts that include focused studies in 4 areas: (1) Subduction/Mass Balance Study; (2) SEIZE Experiments; (3) Rifting Focused Study; and (4) Sediment Dynamics of Continental Margins.